CAREER: Solutions, Spectrum and Dynamics of Schrodinger Oerators

ABSTRACT

PI: Alexander Kiselev
Proposal: DMS-0129470
Institution: University of Chicago

The research will focus mainly on two directions.
The first objective is to further study and apply to concrete
quantum systems of interest the criteria relating behavior
of solutions of Schroedinger equation, spectrum and dynamics.
In particular, the applications may shed new light on the
dynamics and spectrum of certain classes of random and
quasiperiodic operators, such as Fibonacci Hamiltonian, as
well as provide a better general understanding of the quantum
transport phenomena. The second objective is to continue the
study of advanced WKB methods for one-dimensional Schroedinger
operators, using the tools of harmonic analysis. WKB methods
are a classical part of quantum mechanics, and their main
goal is to find a good approximation for the wave function of
the system under certain natural assumptions. This project will
pursue the development of new WKB-type techniques, which can be
applied to obtain information about dynamics of a class of
Schroedinger operators. Extensions to higher dimensions
will also be sought.

The spectral and dynamical theory of Schroedinger operators
is the cornerstone of Quantum Mechanics. This theory describes
the laws which govern behavior of the quantum particles, such
as electrons, atoms and molecules. Much of the fundamental
scientific knowledge about many important physical processes
(such as, for example, chemical reactions or conduction
properties of various materials) comes from the theory of
Schroedinger operators. This project focuses on the development
of new methods in spectral and dynamical theory of Schroedinger
operators which may allow a new approach to some long-standing
problems in Quantum Mechanics. These problems concern, in
particular, the conductance properties of materials with
impurities and of quasicrystals, and have direct applications
to modern engineering devices, wave guides and transistors to
name two. The project will also involve development of a modern
mathematical methods curriculum for undergraduate students
majoring in biology and chemistry. Given rapidly evolving
interface between mathematics and these sciences, a new set
of ideas and material needs to be incorporated into such
service courses. In addition, graduate courses will be
developed with the main objective to help beginning graduate
students make a transition to independent research.